NSF Young Investigator

9357199 Jarrell This is a NSF Young Investigator Award which will theoretically study strongly correlated electronic materials including heavy Fermion, magnetic and high temperature superconducting materials. Besides the usual analytic many-body techniques, quantum Monte Carlo simulations will be combined with perturbation theory so that the computationally intensive Monte Carlo is used only for the non- perturbative part of the problem. %%% ***